Oceanographic Instrumentation

Texas A&M University requests funding to purchase shipboard instrumentation. The instruments will be used aboard the R/V GYRE, a 182 foot vessel, which is owned and operated by the University. The PI requested funding to purchase a variety of instruments to provide adequate support for NSF-funded scientific research that is scheduled aboard the GYRE in 1993.